Doctoral Dissertation: Testing the New Keynesian Synthesis: An Experimental Examination of Nominal Price Frictions in a Model with Endogenous Costs and Efficiency Wages

James Cox and Bart Wilson SBR-9507526 For the last twenty years, so-called new Keynesian macroeconomists have been trying to construct their macroeconomic theories from solid microeconomic foundations. They have proposed models in which prices and wages are sticky and monetary policy has real effects in the short run. This work has rested on the assumptions of imperfect competition, menu costs, and real rigidities. Menu costs are the cost of changing prices. A real rigidity is a failure of the firm s costs of fully adjust to an aggregate demand shock. Real rigidities are a consequence of efficiency wages. Efficiency wages are wages above the competitive equilibrium level that firms pay in order to reduce shirking by its workers. This proposal consists of two experiments designed to test the assumptions of new Keynesian macroeconomic models. The first experiment will test Mankiw s menu cost model using an experimental design in which monopoly sellers face fluctuations in nominal demand and cost. The second experiment will test an efficiency wage model using an experimental design in which p roducers face menu costs and workers can shirk. The results of these experiments will shed light on the dynamics of price and wage adjustment to demand shocks and suggest the directions in which the current theories need to be developed.